Electrocatalytic Organic Oxidations by Some Mono and Binuclear Complexes of Ruthenium, Osmium, and Manganese

This is a study of the electrocatalytic properties of mononuclear and binuclear complexes of ruthenium, osmium, and manganese towards oxidation of organic substrates. The ligands used should stabilize high oxidation states; these will be prepared chemically or electrochemically and characterized by such techniques as cyclic voltammentry and spectroelectrochemistry. The electrocatalytic behavior of these species will then be studied under two different circumstances: with the electrocatalyst bound to the electrode, and with the electrocatalyst in the electrolyte solution. Current distribution and electrochemical kinetics will be measured. Potential (but clearly future) applications of this work include fuel cells, electrosynthesis, and detoxification of hazardous waste.